Mathematical Sciences: Lake Louise Conference on Algebraic Topology and Algebraic K-Theory, December 12-16, 1991, Alberta, Canada

The purpose of this project is to provide travel and lodging support for U.S. mathematicians traveling to a conference at Lake Louise, Alberta, Canada, December 12-16, 1991. The conference is entitled "Algebraic Topology and K-theory", and the intention is to bring together mathematicians from these two, related, but often separate fields.